Ferroelectric Self-Assembled Monolayers as Pyroelectric Materials

9361602 Robinson This Small Business Innovation Research (SBIR) project is in the general area of analytical chemical instrumentation and specifically in the subfield of thermal detectors. Pyroelectric thermal detectors traditionally are based on inorganic ferroelectric single crystals or ferroelectric organic polymer films which are oriented in an electric field. In this Phase I study pyroelectric films will be prepared by fluorination of self assembled monolayers (SAM) of long chain alkylthiols on gold surfaces. Dipolar SAMs are expected to be stable, robust and pyroelectric. Pyroelectric coefficients and figures of merit will be determined as a function of alkylthiol chain length and degree of fluorination. If SAMs can be made with pyroelectric properties better than currently used materials, Phase II studies will be directed towards fabricating a prototype pyroelectric device. %%% Pyroelectric detectors based on fluorinated SAMs are expected to be compact, low cost, and capable of being integrated with an amplifier onto a single silicon chip and operated at room temperature. The low thermal mass and low dielectric constant of a free-standing monolayer should make its sensitivity and response time better than current polymer pyroelectric materials. ***